Center for the Study of the Origin and Structure of Matter

The Center for the Study of the Origin and Structure of Matter (COSM) aims
to conduct research that has the potential to advance our understanding of
the world through the lens of particle and nuclear physics. The Center
also aims to be a doorway for empowering a network of Historically Black
Colleges and Universities (HBCU's) to participate in these highly visible
science projects.

There are three components of the Center: (1) Experimental research at the
frontiers of particle and nuclear physics at all of the COSM network
universities. (2) Building and strengthening a collaborative network of
researchers at HBCU's in these research activities. (3) Outreach to K-12
teachers and students, to invite and encourage these students to pursue
careers in science.